Multi-Disciplinary Incorporation of Scanning Electron Microscopy into the Undergraduate Biological and Physical Science Curriculum

Major departments in the College of Science and Technology at Western Kentucky University continue their efforts to strengthen the undergraduate degree programs in the sciences. A working knowledge of electron microscopy is an essential component of the undergraduate curriculum, the most plausible avenue for exposure is through scanning electron microscopy (SEM). This grant requests funds to purchase an SEM, specifically the JSM-5400 low-vacuum (LV) SEM by JEOL, equipped with an energy dispersive X-ray spectrometer (EDS/X-ray). This instrumentation is ideal for the academic setting because it allows for traditional high-resolution imaging of "fixed" samples or on-the-spot observation of nontreated, noncoated, (even hydrated) samples. The LV/EDS X-ray configuration will satisfy both the implicit time restraints of laboratory instruction and the more stringent requirements for multidisciplinary utilization. The primary goals are: (1) to train undergraduate students in biology, chemistry, geology, and physics in the use and application of SEM and EDS X-ray microanalysis, (2) to develop new laboratory exercises for several courses, including Cell and Developmental Biology, Ecology, Geomorphology, Sedimentology, Polymer Chemistry, Solid State Physics, and (3) to extend the breath of investigative possibilities for undergraduate student/faculty research.